Academic Research Infrastructure: Acquisition of a High- Performance Computing Facility

9601954 Sugar, Robert University of California - Santa Barbara Academic Research Infrastructure: Acquisition of a High-Performance Computing Facility This Academic Research Infrastructure award supports the acquisition of a high speed SMD computing system operating at a peak speed of approximately 15 GFLops. The research projects supported by the equipment include: 1. Computational materials science in the NSF funded Materials Research Laboratory. 2. Computational chemistry in crystal growth, zeolite properties, and surface chemistry. 3. The computational investigation of electronic microstructures. 4. Simulation of 3-D ground motion in earthquake simulations of the LA basin. 5. Quantum chromodynamics. 6. Fluid mechanics, geophysical fluid dynamics, and free and moving boundary problems. 7. Research at the Institute of Theoretical Physics, the National Center for Ecological Analysis and Synthesis, and the Alexandria Digital Library project. 8. Research in computer science, numerical mathematics, and general scientific computation for SMD architectures.